Regional Partnership to Improve Science Content Courses for Pre-service Elementary Teachers

Interdisciplinary (99)

Three institutions have formed a partnership to share a science content course that spans two semesters and is intended for pre-service elementary teachers and university students who want to teach young children. The science course is based upon an inquiry-learning cycle that is well supported by cognitive science and education theory. The content of the shared course comes directly from the Illinois State Learning Standards, which specifies the content elementary teachers are required to teach. The science course includes technology components and capstone projects, also intended to align with Illinois Learning Standards. The course is specifically designed to interest future teachers, in part because the majority of pre-service students are women, many of whom had indifferent science experiences. Revisions to the course will involve instructors from all three partner institutions.